Collaborative Research: EnCORE: Institute for Emerging CORE Methods in Data Science

The proliferation of data-driven decision making, and its increased popularity, has fueled rapid emergence of data science as a new scientific discipline. Data science is seen as a key enabler of future businesses, technologies, and healthcare that can transform all aspects of socioeconomic lives. Its fast adoption, however, often comes with ad hoc implementation of techniques with suboptimal, and sometimes unfair and potentially harmful, results. The time is ripe to develop principled approaches to lay solid foundations of data science. This is particularly challenging as real-world data is highly complex with intricate structures, unprecedented scale, rapidly evolving characteristics, noise, and biases. Addressing these challenges requires a concerted effort across multiple scientific disciplines such as statistics for robust decision making under uncertainty; mathematics and electrical engineering for enabling data-driven optimization beyond worst case; theoretical computer science and machine learning for new algorithmic paradigms to deal with dynamic and sensitive data in an ethical way; and basic sciences to bring the technical developments to the forefront of health sciences and society. The proposed institute for emerging CORE methods in data science (EnCORE) brings together a team of researchers spanning the afore-mentioned disciplines from the University of California San Diego, University of Texas Austin, University of Pennsylvania, and the University of California Los Angeles. It presents an ambitious vision to transform the landscape of the four CORE pillars of data science: C for complexities of data, O for optimization, R for responsible learning, and E for education and engagement. Along with its transformative research vision, the institute fosters a bold plan for outreach and increasing participation by engaging students at all levels to postdocs and junior faculty. The project aims to impact a wide set of students by offering collaborative courses across its partner universities and a flexible co-mentorship plan for truly multidisciplinary research. With regular organization of workshops, summer schools, and seminars, the project aims to engage the entire scientific community to become the new nexus of research and education on foundations of data science. To bring the fruit of theoretical development to practice, EnCORE will continuously work with industry partners, domain scientists, and will forge strong connections with other National Science Foundation Harnessing Data Revolution institutes across the nation.

EnCORE as an institute embodies intellectual merit that has the potential to lead ground-breaking research to shape the foundations of data science in the United States. Its research mission is organized around three themes. The first theme on data complexity addresses the complex characteristics of data such as massive size, huge feature space, rapid changes, variety of sources, implicit dependence structures, arbitrary outliers, and noise. A major overhaul of the core concepts of algorithm design is needed with a holistic view of different computational complexity measures. Faced with noise and outliers, uncertainty estimation is both necessary, and at the same time difficult, due to dynamic and changing data. Data heterogeneity poses major challenges even in basic classification tasks. The structural relationships hidden inside such data are crucial in the understanding and processing, and for downstream data analysis tasks such as in visualization and neuroscience. The second theme of EnCORE aims to transform the classical area of optimization where adaptive methods and human intervention can lead to major advances. It plans to revisit the foundations of distributed optimization to include heterogeneity, robustness, safety, and communication; and address statistical uncertainty due to distributional shift in dynamic data in control and reinforcement learning. The third and final theme of EnCORE proposes to build the foundations of responsible learning. Applications of machine learning in human-facing systems are severely hampered when the learned models are hard for users to understand and reproduce, may give biased outcomes, are easily changeable by an adversary, and reveal sensitive information. Thus, interpretability, reproducibility, fairness, privacy, and robustness must be incorporated in any data-driven decision making. The experience and dedication to mentoring and outreach, collaborative curriculum design, socially aware responsible research program, extensive institute activities, and industrial partnerships would pave the way for a substantial broader impact for EnCORE. Summer schools with year-long mentoring will take place in three states. Joint courses with hybrid, and fully online offerings will be developed. Utilizing prior experience of running Thinkabit lab that has impacted over 74,000 K-12 students so far, EnCORE will embark on an ambitious and thoughtful outreach program to help create a future generation of workforce that has solid foundations in data science.